Fluorinated Units in Synthesis

The focus of this research is the preparation of fluorine containing molecules from monofluoro subunits. The subunits under investigation are fluorobutenolides, fluorodienes and fluorovinyl sulfoxides. The fluorobutenolide research probes the potential of the subunits for the synthesis of fluoronucleosides and 2-fluor- and 3-fluor-butenolides. The fluorodiene study stresses Diels-Alder methodology and polymerization reactions and the fluorovinyl sulfoxides provide entry into a variety of fluorovinyl systems. It is anticipated that a total of twenty five undergraduate and masters level students will take part in the research. With this Research in Undergraduate Institutions (RUI) award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Timothy B. Patrick in the Department of Chemistry of Southern Illinois University at Edwardsville. With the help of undergraduate and masters students, professor Patrick will focus his work on designing and developing new general synthetic methodology for the preparation of complex carbon-fluorine molecules. Molecules of this type have interesting and useful biological properties.